An Advanced Computational Facility to Support Research on Civil Engineering Infrastructure

This project will provide a computational capability for the faculty of the Civil Engineering Department of the University of Puerto Rico at Mayaquez. The equipment will be used for graduate research projects and for educational activities at all levels.